Synthesis and Characterization of Some Ternary Chalcogenides

This proposal concerns the synthesis and characterization of solid-state ternary chalcogenides (a chalcogenide being a compound that contains S, Se, or Te). The discovery of new physical properties cannot progress if new compounds are not synthesized. While current emphasis is on the oxides, owing to the discovery of high superconducting temperatures in some oxides, this proposal addresses what they perceive to be an imbalance and is concerned with chalcogenides. Among the systems proposed for study are (a) structural chemistry in the Nb,Ta/Pd,Pt/S,Se systems; (b) intercalation chemistry of some layered ternary chalcogenides; (c) synthesis and physical properties of some f-electron ternary chalcogenides; (d) preparation and properties of new ternary tellurides; (e) chemistry of polychalcogenides of the transition metals; and (f) some searches for new materials in areas that have not been studied. The ultimate goal of such studies is a sufficient correlation of composition, structure, and physical properties so that new materials with desired properties may be custom designed.